MRI: Evolutionary Development of an Advanced Distributed Testbed

Proposal #: CNS 07-23248
PI(s): Lepreau, Jay
Corbato, Steven C.
Institution: University of Utah
Salt Lake City, UT 84112-8930
Title: MRI/Dev.: Evolutionary Development of an Advanced Distributed Testbed
Project Proposed:
This project, developing an advanced distributed testbed, aims to take the best software components from several existing infrastructure projects, add missing pieces, integrate them into a coherent whole, deploy on selected hardware and network connections, and quickly build an early, but fully functional version of an advanced experimental facility, called NewLab. The work evolves in three phases that
. Provide early but broad and powerful function, where the best components of Emulab and PlanetLab are integrated into a coherent whole;
. Focus on interfaces and software modularity, evolving cleaner interfaces and more separable modules;
. Refine, and improve selected components, tuning for better performance.

Broader Impacts: The testbed provides researchers and students with a rich experimental network facility, an integrated and powerful experimental management to control it, and engineering and architectural lessons on components and interfaces for testbed and experiment management.